The Fifteenth International Conference on Ultra-Relativistic Nucleus-Nucleus Collisions 'Quark Matter 2001'

Funds from this award will be used to help students and other junior
investigators to participate in the Quark Matter 2001 Conference, to
be held January 14-20, 2001. With the recent commencement of
data-taking at the newly commissioned Relativistic Heavy Ion
Collider (RHIC), this conference will be a very timely milestone
marking first results in the search for the quark-gluon plasma.